Chemical Reactions at Solid/Solution Interfaces and in Aerosols

A program of study of the solid/solution interface will be performed involving the preparation of well defined colloidal dispersions, studies of chemical reactions in aerosols, and particle-particle interactions. Special emphasis will be placed on the preparation and characterization of particles consisting of more than one cation. The relationship of the composition of the solid phase to that of the solution will be examined. Coated particles having different surfaces and cores will be examined with a view to developing particles with surfaces containing high value components. The interaction between particles of different composition, size and surface potential in media of varying ionic strength will be examined both experimentally and theoretically. %%% The research, in the general area of Analytical and Surface Chemistry, focuses on the study of chemical reactions at solid/solution interfaces and in aerosols. The project promises to extend our understanding of colloidal particles. The outcome of this research has considerable practical applications impacting on several important technologies (e.g. ceramics, paints, catalysis).